Long-Term Performance of Geosynthetically Reinforced Walls: Implications of Creep and Stress Relaxation on Design

ABSTRACT CMS9523141 PI: Kaliakin, et al., University of Delaware The problem of time-dependent response of geosynthetically reinforced soil structures requires study from the standpoint of fundamental mechanics, and attention is needed on current design procedures and for future applications. Standing in the way of a thorough understanding of the time-dependent behavior are the lack of stress relaxation experimental data, and the lack of a robust constitutive model for the reinforcement that will account for both creep and stress relaxation in a rational manner. The major objectives of the research are: 1) to experimentally study stress relaxation of selected geosynthetic reinforcement, 2) to develop a simple constitutive model to realistically simulate the time dependent behavior of the reinforcement, 3) to implement this model into an existing FE computer code, and to verify the predictive capabilities of the model, and 4) to conduct an extensive numerical parametric study of geosynthetically reinforced walls at working stress conditions. The results will facilitate the understanding of time dependent behavior of geosynthetic reinforcement interactive with backfill soil and will make the design of such structures more rational.